Centre College Educational Community Connection NSFNET

9503514 Moore Centre College proposes to install and maintain a 1.5 Megabit (T1) communications circuit for the purpose of establishing a permanent connection to the Internet. This line will enable Centre College to replace the current temporary connection to the Internet and to expand current services to two public school systems and the Kentucky School for the Deaf. This connection will also afford improved sharing of resources by and with other educational institutions by providing connectivity with federal and state agencies and institutions of higher education worldwide.